Leveraging machine learning for understanding variation in cognitive performance across multiple domains

Cognitive processes related to learning, memory, executive function, and flexibility are fundamental to our ability to navigate the world. However, measurements of cognitive performance within and across individuals over time, and the effects of cognitive variation on real-world outcomes, are difficult to capture in humans because of our complex lives and long lifespan. This project leverages machine learning and a primate model system with exceptionally sophisticated, human-like, cognitive abilities and a shorter lifespan to advance understanding of intra- and interindividual variability in cognitive processes and their effects on survival and fitness. The project avoids the limitations of traditional cognitive studies by assessing cognition in a natural but relatively controlled setting, using smart and validated AI testing stations that apply face recognition, and implementing a set of repeatable, standardized cognitive tests that systematically assess cognition at the individual level. Outcomes include rich comparative data for understanding cognitive evolution and variation in our own species, an expansion of AI-enabled cognitive research that includes open-source shared guides and protocols, science communication, and scientific collaboration.

Touch-screen tasks, redesigned for field conditions, are applied to test four cognitive domains: learning, memory, executive control, and cognitive flexibility. Through machine learning and real-time individual recognition, the study implements personalized repeatable and standardized cognitive tests. This methodological approach allows for high density sampling, lending robusticity to the study. Results are analyzed to establish levels of individual variability in cognitive performance, factors that affect said variability, and the stability of individual performance over time. Cognitive results are paired with long-term demographic, behavioral and ecological data to assess the impact of cognitive abilities on fitness.